Sequentially Transparent Synthesis

ID: CCF-0702668
Project Title: Sequentially Transparent Synthesis
PI name: Brayton, Robert K.
Institution: University of California-Berkeley

Abstract:
Microelectronic devices are already pervasive in our everyday life, from computers to video games. Efficient manufacturing of these devices is key to this country's technology competitiveness and implies automating the design process. Thus, computer-aided design (CAD) software, capable of representing, optimizing, and implementing complex digital systems needs to be researched and continually developed. This is a demanding task and without continual research, development of CAD software will not keep up with the growing demands on the capacity, variety, and speed of designing new digital electronic systems.

The proposed work focuses on basic research in the key area of automatically creating and transforming functional descriptions of electronic systems that are being designed. The goal is optimization, targeting criteria that vary depending on the design needs, e.g. optimizing for minimal power consumption, which is important for portable devices, such as cell phones, as well the huge banks of compute servers that power the internet.

A primary focus of this research is in an area called sequential synthesis and verification. Most digital systems can be viewed abstractly as finite state machines (FSMs). Most CAD algorithms, which optimize these, work on a very limited view of FSMs by ignoring the memory components (called combinational optimization). This leads to very suboptimal results. Optimizations, which manipulate the memory (sequential optimization) are usually ignored because they are not scalable to large systems, and it is too hard to verify the correctness of the result. The research to be performed (1) advocates a novel representation of FSM functionality that makes sequential optimization and validation easier and (2) unifies several previously unrelated optimization goals, which allows for finding better solutions in shorter time.

The project, when successfully completed, will contribute to the research and development of a new generation of efficient CAD software. It will boost designer productivity, lower development costs, and shorten the time to market for the design, implementation, and verification of complex systems.